Time-shared Operating Systems in Small College InstructionalEnvironments

This project gives faculty from fifteen colleges the expertise necessary to manage a multi-user, multi-tasking computer system and integrate its use into their curricula. There are three phases to the project. In the first phase, participants attend an intensive two week workshop in systems use and management, with the practical emphasis on the UNIX operating system. Materials from the workshop are used to configure computing systems of the individual schools for the use of the participants. With the aid of the program, these systems are set up and connected into a communications network involving all of the participating schools. During the next year, the systems at the school will be supported by a software support group at the University of Kentucky, while the participants develop group projects. These projects are oriented to upgrading the computer science and/or mathematics instructional environments and curricula in the individual schools. At the end of the year, the participants run a conference on the UNIX system in the small college environment; at which time they will report on their projects and evaluate the program.